Strategy in a Clientelist and Populist Milieu: The Dynamicsof Electoral Politics in Brazil, 1978-1990

Brazil is currently completing a long transition away from military rule toward a fully democratic system. For democratic rule to last, the legislature must contribute to the solution of the country's critical social and economic problems. There is increasing concern, however, that the congress is weakened due to a number of factors: the absence of strong party identification on the part of the electorate; the inability of deputies to coalesce along party lines on national issues; the failure of party leaders to maintain party coalitions; and, the focus of deputies on pork-barrel legislation and patronage. This project attends to these issues by investigating congressional elections in Brazil between 1978 and 1990. The problems in Brazil are in part the result of the institutional structure of Brazilian elections. Brazil's electoral system is proportional, with each state constituting an individual multi-member district. Voters, however, cast ballots for individuals, not parties, and the order of votes received by individual candidates determines winners. This institutional structure, coupled with the clientelistic nature of Brazilian society, encourages many deputies to restrict their campaigning to discrete sub-state regions. A group of deputies may represent a single party, but their true orientation is local or regional. Deputies may care a great deal about bringing jobs and projects to the residents of their bailiwicks, while legislation on national issues becomes unimportant to their reelection chances. Until recently, the absence of election results below the state level made serious analysis impossible, but recently released county-level results enable scholars to begin to investigate the problem. In addition to undertaking a statistical analysis of the results of the four elections between 1978 and 1990, the investigator will interview congressmen, journalists and academics about campaign strategies and tactics. In addition, voting records and committee tactics will be examined, as well as the behavior of deputies in the Congress. The major objective of the project is to understand how traditionalist clientelistic forms of societal organization interact over time with political institutions and how this interaction is affected by migration, the expansion of communications media, and improved transportation. The researchers also investigate the strategies of congressional candidates faced with certain institutional and societal incentives and constraints. Finally, the project seeks to further understanding of the impact of political institutions on the transition to democracy in Latin America as a whole, especially in terms of the kinds of legislative behavior institutions encourage.